An Investigation of the Thermo-Mechanical Properties of Sea Ice

Ice sheets are caused to move by wind, currents, and pressure from other ice. When the moving ice sheets encounter man-made structures (bridges, dams, oil-production islands,....), they can apply loads large enough to cause catastrophic failures. Design of the structures clearly requires an understanding of the ice forces that are likely to be applied. Existing studies show that the physical properties of ice depend on a complicated series of factors, e.g., temperature, strain rate, air content, and the size and orientation of individual ice crystals. Empirical models are being developed to provide a description of the physical properties of ice but long-term benefits are likely to result from a more fundamental approach in which the physical properties of individual crystals of ice are first studied and then the resulting properties integrated into a more general model.This project represents a starting point for the study of the physical properties of single crystals of ice. First, it allows the principal investigator to develop appropriate apparatus and to demonstrate its success. Second, it allows the principal investigator to use, and perhaps improve, a technique recently developed in Japan for rapid growth of large single crystals of ice, thus making the research feasible. Preliminary experiments on single crystals are planned but the major testing and analytical phases will require additional funding.